1989 VLSI Education Conference and Exposition, July 19-21, 1989, Santa Clara, California

The purpose of this conference is to promote communication between government, university, and industry personnel interested in expanding VLSI education to a larger number of universities. This is a sequel to a very successful conference last year, which stimulated the migration of VLSI technology into the undergraduate curriculum.